The Feasibility of Virtual Reality as a Roadway Infrastructure Design and Educational Tool

*** 9634815 Dixon This Research Planning Grant focuses on the feasibility of virtual environment. Specific planning objectives are as follows: Complete an extensive literature search of research to date performed in the object-oriented computer-based area of virtual reality and the application of this technology to infrastructure modeling. Identify and contact local and national experts in the area of advanced computer and virtual reality applications. Perform preliminary translation tasks to determine the compatiility issues that will occur when modifying the digital terrain models created by software in current use and those required for application to the virtual reality environment. Initial planning tasks will include determination of the required hierarchial processes of grouping and combining digital terrain model features into polygons or sufaces for ultimate virtual reality applications.***